Arithmetic Groups in Algebraic Geometry

The goal of the project is to study the geometry and topology of certain special
moduli spaces arising in complex algebraic geometry. Here, "special" means that
they may be described as quotients of Hermitian symmetric spaces by discrete
groups. (There are surprisingly many examples of these spaces.) The first
specific goal is to understand the topology of a large family of these spaces
that includes the moduli spaces of polarized smooth K3 surfaces and several other
examples arising in singularity theory. By "understand the topology of" we mean
that we beleive these spaces have contractible universal covers, and we want to
prove this. The idea is to use tools from the theory of negatively-curved metric
spaces that generalize the idea of a negatively-curved Riemannian manifold. The
second specific goal is to complete a joint project with J. Carlson and D. Toledo,
to prove that the moduli space of cubic hypersurfaces in 4-dimensional projective
space is isomorphic to a quotient of the complex 10-ball by a certain discrete
group. The third specific goal is to close the last open aspect of Hilbert's
14th problem, by showing that there is a representation of the 2-dimensional
additive group for which the ring of invariants is not finitely generated.

The project addresses concrete problems in algebraic geometry concerning the
classification of various objects like curves and surfaces. Algebraic geometry
as a subject deals with curves and surfaces that can be defined by means of
equations, and also with higher-dimensional versions of these curves and surfaces.
An example giving the flavor of the classification problem is that a circle is
essentially the same as an ellipse, because one of them can be got from the other
by stretching the plane in one direction. An ellipse is also essentially the same
as a parabola, because you can imagine keeping one end of the ellipse fixed and
pushing the other off to infinity. You can go even further and push the end off
past infinity, so that it reappears on the other side of the plane, and you see a
hyperbola. An algebraic geometer expresses these ideas by saying that any two
conics are "projectively equivalent". What these shapes all have in common is
that they are defined by simple equations--two variables, and only terms of degree
two or less. A major part of modern algebraic geometry is studying similar
questions but with the number of variables increased, or the complexity of the
equations increased to allow higher-degree polynomials. For example, it turns
out that not all curves in the plane that are defined by degree three equations
are projectively equivalent. The ways in which these curves can differ from each
other is very important for many fields of mathematics and even physics. This
example was understood in the 19th century, but similar problems remain open.
One purpose of the current proposal is to gain an understanding of how the
projective equivalence classes of the degree-three "surfaces" in four-dimensional
space can vary. We believe that this may be described in a beautiful and
surprising way using the unit sphere in 10-dimensional complex space. This result
would be similar to a classical result for degree three curves in the plane. We
want to prove that our intuition is right. Another problem to address is that of
finishing a part of Hilbert's 14th problem, one of the celebrated problems posed
by David Hilbert at the beginning of the 20th century.